Urban Massachusetts LSAMP

PROJECT SUMMARY
Page A
Urban Massachusetts Louis Stokes Alliance for Minority Participation Project Summary
The Urban Massachusetts Alliance for Minority Participation (UMLSAMP) is comprised of the
University of Massachusetts Boston, UMass Dartmouth, UMass Lowell, and Wentworth Institute
of Technology and their community college colleagues Bunker Hill, Roxbury, Bristol, and
Middlesex Led by UMass Boston, The UMLSAMP is designed to address three interrelated
problems. First, the number of underrepresented students at the Alliance institutions
majoring in STEM fields is relatively small. In Fall 2004, only 820 Alliance
undergraduates were enrolled in a STEM major, 12% of the total. Of the students who do
enroll in a STEM major, far too few graduate--only 99 STEM BS degrees were awarded to
underrepresented minority students by Alliance institutions in 2004. Finally, there is a
lack of alignment between courses and programs offered by community colleges and the
four-year institutions to which the majority of their students transfer. Lack of
alignment also often greatly increases the amount of time it takes students to progress to
degree completion.
The Urban Massachusetts LSAMP (UMLSAMP) will aggressively recruit underrepresented
minority students from local high schools and partner community colleges who have an
interest in STEM. The UMLSAMP will implement new and expand existing bridge programs for
incoming freshmen and for community college transfer students where students will take
intensive math courses, interdisciplinary STEM courses and work part-time in research
labs. The UMLSAMP will implement facilitated study groups for the gateway courses to
further ensure success. AMP students will be provided mentored research experiences and
other scholarly activities, including opportunities to attend research seminars, talks,
and conferences. AMP students will have access to a drop in center and will receive
intensive mentoring from peers, faculty, advisors focused on making sure the students,
especially during the first two years, successfully progress into and through college and
helping them develop and define their academic and career goals. Finally UMLSAMP members
will focus on articulation and alignment of STEM courses and degree programs between the
community colleges and the four year institutions.
The Alliance members value the synergy that results from working collaboratively and, in
addition to joint governance of the Alliance, have planned several activities to
capitalize on the group’s collective wisdom and energy, including joint planning and
implementation of activities, common data metrics and benchmarks and identification of
institutional obstacles that impede the progress of underrepresented students in STEM
majors, and an annual research and best practices conference will be rotated among the
Alliance Institutions. We expect to achieve the following outcomes by the end of five
years:
1. 50% increase in the number of Black, Hispanic, and Native American students majoring in
STEM fields.
2. 150% increase the number of BS STEM degrees conferred on Black, Hispanic, and Native
American students
3. 150% increase the number of students who successfully transfer from Alliance community
colleges into BS STEM majors.
Each of the Alliance members have extensive experience in minority student development and
PROJECT SUMMARY
Page A
have drawn upon the literature on the retention of low income, first generation, and
underrepresented students and studies of best practice in minority student development in
the sciences (intellectual merit) in designing the proposed LSAMP. The Alliance will
implement activities with intellectual merit which will have several broad impacts. First,
the impact of project activities on student success in gateway math and science courses
will be carefully evaluated and those that are most effective will be institutionalized.
Second, because the project has a particular focus on underrepresented students and on
transitioning community college students to baccalaureate degree programs, it will
contribute important knowledge to the field. Finally, project results and effective
strategies will be disseminated to other institutions through an annual report on "Lessons
Learned" and "Best Practices."